In Answer to A National Challenge: A Pilot Program to Increase Participation in Science, Technology, and Mathematics (STEM) Fields

Over the last several years, the critical need to bolster participation in science at all levels in
the United States has become an issue of national concern. As the number of people trained in
highly technical fields in the sciences, mathematics and engineering grows, there is evidence
to suggest that students who have aptitude and interest in the sciences and mathematics often
become disillusioned with their college-level studies and opt for majors in non-science
disciplines. These students abandon potentially promising careers in science, technology,
engineering and mathematics (STEM) fields because of inadequate preparation during their
high school years, feelings that they can not compete, inadequate and/or poor advising by
college faculty, and disinterest in university-level general education classes in STEM fields. A
most harmful part of this trend is that many students make decisions to leave STEM majors
during their first year of college when they have not yet had the opportunity to develop strong
ties with STEM departments. This loss of talent is detrimental not only to the intellectual
capital that is a source of national pride but also to the nation's ability to maintain the high
standard of living that is one by-product of a technologically-advanced economy. The solution
to this problem lies, in part, in the ability of colleges and universities to restructure science
and mathematics courses and majors.

To address this problem in which promising students switch to non-scientific majors early
in their college education, funding is requested for a three-year initiative that has as its
overarching goal to recruit and retain promising students in STEM majors. Our approach
is to develop a pilot project that consists of three parts: (1) a Summer Science Institute
for high school students; (2) a Freshman Year Science Seminar Series, and (3) a Sophomore
Year Independent Research Experience. At the heart of each of these programs are common
themes, including introducing students to the joys of scientific discovery and the nature of
team-based interdisciplinary research, informing students about exciting career choices in
STEM fields, exposing them to the rich history of scientific thought and discovery, and
providing them with the tools and support structure they need to complete a baccalaureate
degree in one or more STEM disciplines. We integrate practices that have been shown to be
effective in improving participation, including close mentoring, extracurricular activities,
development of a cohort, inclusion of parents, and professional development for faculty.
According to recent studies, the problem of first-year flight disproportionately impacts
women, minorities, low-income, and/or first-generation students. For this reason, our
recruiting efforts are concentrate on these target groups.

This pilot program has been carefully overseen and assessed by an Advisory Board chaired by
the chief academic officer of Central Washington University, Provost/Senior Vice President
David Soltz. Assessment is coordinated by Associate Professor of Science Education
and Chemistry Martha Kurtz and Vice Provost and Professor of Curriculum and Supervision
Linda Beath. Twice per year, goals, assessment strategies and benchmarks are reviewed
in order to improve the program. Should our approach be successful, full scale implementation
at CWU would rely on funding from private sources and redirection of internal resources.
Because our proposed program relies on themes and resources that are fundamental to most
colleges and universities, we anticipate that other STEM groups could adopt our program,
thereby increasing its impact from a local to a national scope. Central Washington University
is well poised to support a program that stresses outreach to minority populations, careful
mentoring, and inquiry-based, interdisciplinary academic programs. CWU emphasizes small
class size, close professional relationships between faculty and students, and a culture that
rewards innovative, inquiry-based teaching and learning. The University has a strong,
well-supported program in undergraduate research and creative expression, and strengths in
education promote effective use of assessment strategies. This project reflects a
collaborative effort among 11 faculty in six College of the Sciences departments. Co-PIs
include Wendy Bohrson (Geological Sciences), Michael Braunstein (Physics), Eric Bullock
(Chemistry), Carey Gazis (Geological Sciences), Lisa Ely (Geological Sciences), Ed
Gellenbeck (Computer Sciences), Stephen Glasby(Mathematics), Martha Kurtz (Science
Education and Chemistry), Steven Lundblad (Geological Sciences), Andy Piacsek (Physics),
and Holly Pinkart (Biological Sciences).